SGER: Complex Pelagic Interactions in the Southern Ocean: Deciphering the Antarctic Paradox

The primary goal of the proposed multidisciplinary project is to quantify, examine, model
and validate the complex interactions, involving direct, indirect and feedback effects,
that regulate the planktonic food web in the coastal waters of the Southern Ocean with the
aim of elucidating the causes underlying the low phytoplankton biomass and production
despite the high nutrient availability there. In particular, the project will evaluate
the feedback mechansisms induced through the role of ammonium, largely released by
aggregations of herbivorous zooplankton present in the Southern Ocean, krill specifically,
on the resistance to UV stress by the phytoplanktonic community and, in particular,
effects on the nitrogen incorporation rates, both ammonium and nitrate, and the subsequent
development of phytoplankton blooms. The project will not only address the problem
experimentally, but will also consider the complex interactions in the context of the
heterogeneous landscape, dominated by small parcels of water, that provides the scenario
on which the complex interactions occur. This project will be conducted through a
shore-based (Juan Carlos I) operation in 2004 and a subsequent oceanographic cruise (R/V
Hesp rides) in 2005.